CAREER: Determining microbial metabolisms that transform primary production and mediate biogeochemical cycling on coral reefs

Microbes are master manipulators of metabolites in the sea, promoting nutrient recycling through mineralization of organic matter, and transformation of organic matter via enzymatic activity. Reef-associated microbes play key roles in processes such as nitrogen cycling, iron scavenging, and synthesis of B vitamins, contributing widely to the exchange of mineral nutrients and cofactors essential for reef organisms. This project seeks to understand how coral reef-derived organic substrates select for distinct microbial groups and determine how the metabolism of these core reef microbes influences ecological processes. Understanding how organisms interact to exchange metabolites or signal a physiochemical event is also essential for successful reef restoration and resource management. Ongoing macroalgal phase shifts on coral reefs are thought to be a consequence of coastal pollution, and this project directly informs knowledge of how these changes are impacting microbial populations and their metabolism on coral reefs. This project also supports development of a 4-week undergraduate research experience and field course centered around marine microbiology and biogeochemistry at a marine field station, followed by sustained mentorship until graduation.

Coral reef microbes facilitate the exchange of metabolites among different community members through chemical transformations as part of their diverse metabolic repertoire. This study tests the overarching hypothesis that nutrient-rich organic matter released into the seawater environment by benthic primary producers selects for specific microbial taxa which in turn facilitate central ecosystem processes, such as nutrient retention, calcification, homeostasis, and maintenance of biodiversity. By combining molecular approaches (genomics and metabolomics) with biogeochemical measurements and evaluating these parameters across scales, from mesocosm experiments to in situ reef habitats, this research is 1) constructing high-quality metagenomic assembled genomes (MAGs) of core microbial taxa consistently enriched in coral reef environments, 2) measuring the metabolic gene expression of core microbial populations in a controlled mesocosm setting, and 3) comparing gene expression of core microbial populations collected across established spatial gradients of benthic cover and nutrient availability, providing a robust context to determine the differences in microbial metabolism between coral- and algal-dominated reef habitats.